Science Teaching and Astronomy Research Synthesized (STARS)

This project is developing and aims to publish an extensive set of hands-on activities (mostly but not exclusively in astronomy) that incorporate current science research into modules suitable for use in a general science course for nonscientists or in the standard introductory astronomy course in which many students enroll to satisfy their general education science requirement. In these activities, students analyze data that has been sufficiently well-processed that even those who are not science majors can use the data to draw conclusions. While some of the activities only take one class period, others are more extensive and extend over several class periods